Dissertation Research: The Socioecology of the Yunnan Snub--nosed Monkey (Rhinopithecus Bieti)

Ecological theories that explain why groups of animals are a given size provide the hottest debates in ecology today. The Yunnan snub-nosed monkey (Colobinae: Rhinopithecus bieti) is unusual in that it lives in coniferous forests, has uncommon food resources (moss and lichen), and shows a striking pattern of social and spacing behavior, including group sizes of up to 250 individuals. Given the large group sizes and uncommon food resources, the Yunnan snub-nosed monkey presents an excellent opportunity to test theories of grouping behavior that suggest a relationship between the distribution of food resources and the size of social groups. The study will take place in northwestern Yunnan, the People's Republic of China. The Yunnan snub-nosed monkey lives only in China, is extremely rare (only 2,000 individuals remain), and receives top-level protection under Chinese law. The study will provide vital information for conservation managers currently working to protect this species. This project, furthermore, will train Chinese scientists and nature reserve staff in advanced techniques for research and conservation.